The 1999 Aspen Winter Conference on Particle Physics, January 17-23, 1999, Aspen, Colorado

9900415
D'Hoker
The 1999 Aspen Winter Conference on Elementary Particle Physics will be held at the Aspen Center for Physics, Aspen, Colorado, January 17-23, 1999. This conference will bring together theoretical and experimental physicists in a highly interactive format to confront theories of the elementary particles with a wide range of observation facts. Such a confrontation and the additional exchange of ideas which will take place at the conference, are very important to progress in the field.